Development of Discipline Centered National Model for STEM Teacher Preparation

This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).

Seattle Pacific University (SPU) is planning significant changes to its graduate education program and additions to the teacher mentorship program with the goal of creating a national model of professional education and support for teachers in the STEM disciplines that can be emulated by other institutions. The planning, in preparation for a Noyce Teaching Fellowship project, involves the expansion and strengthening of existing relationships with school districts and partnering corporations and foundations. The project is revising the current Masters of Arts in Education program at SPU to focus on the needs of STEM teachers, enhancing the Teacher Mentorship Program to support new STEM teachers and improve retention, conducting a needs assessment and marketing research to determine school district needs and the needs of potential STEM career changers who are considering teaching, obtaining agreements from school districts regarding salary supplements for future Teaching Fellows, developing plans for increasing diversity, and identifying contributions from external partners.